Young Scholars Project in Interdisciplinary Environmental and Earth Sciences

9452663 Miller The Foundation for Glacier and Environmental Research will initiate an eighth week, residential, Young Scholars project in interdisciplinary environmental earth sciences for 15 students entering grade 12 and 3 teachers in an MSTP component. The program will be implemented on Alaska's Juneau Icefield through lectures, seminars, field work, and research projects in field and environmental sciences (geology, atmospheric sciences, surveying, etc.) under the guidance of an international faculty and staff.